Harmonizing Biomanufacturing Training Through Shared Curriculum and Facilities to Deliver Industry-Aligned, Hands-On Manufacturing Capstone Experiences

The biomanufacturing industry is of critical importance to national security and has a direct impact on America's supply of life-saving medicines and a wide array of bioproducts used for food, agriculture, and consumer products. The Texas Regional Industrial Biomanufacturing Education Certification (TRIBEC) Project will serve the national interest by creating a centralized talent pipeline that coordinates biomanufacturing technician training programs, employers, and regional stakeholders. In addition, a hands-on capstone component will elevate community college programs across Texas by enabling access to the multimillion-dollar facilities, equipment, and resources housed in the National Center for Therapeutics Manufacturing.

The project aims to deploy a short-term biomanufacturing technician training program that will quickly equip participants with industry-recognized skills and connect them to jobs. By running concurrently at several community colleges and other sites throughout the state, the program will have significantly higher capacity than any individual program. A current Good Manufacturing Practice (cGMP) capstone experience will give students hands-on experience in upstream and downstream processing, aseptic technique, quality control, documentation, and other manufacturing-relevant topics in a simulated cGMP pilot scale facility. In addition, a centralized database will be created to connect the trained talent pipeline to companies in the region. Finally, the project will annually convene academic partners, industry, economic development organizations, government representatives, and other key stakeholders to discuss how to strategically leverage the program to grow the biomanufacturing ecosystem in the region. This project is funded by the Advanced Technological Education program, which focuses on the education of technicians for the advanced-technology fields that drive the nation's economy.